CC*Network-Campus: The OneOklahoma Friction Free Network 400GE (OFFN-400) at the University of Oklahoma

This project at the University of Oklahoma (OU) provides a 400 Gigabit/second Ethernet (400GE) research-only network: the OneOklahoma Friction Free Network (OFFN) 400GE at OU Norman (OFFN-400). OFFN-400 supports (i) 400GE connectivity, via dual 400GE links, between OU and OneNet, (ii) network speed improvements and reconfiguration to better handle traffic among OU Supercomputing Center for Education & Research (OSCER) for the benefit of researchers across OU, statewide and nationally.

OFFN-400 is part of OFFN, Oklahoma’s statewide research network, which serves 28 institutions, from PhD-granting universities to community colleges. This project enables undergraduate, graduate, postdoctoral, staff and faculty researchers at OU, and at institutions across Oklahoma and beyond, to pursue data-intensive scientific research.